Eighteenth Southeastern - Atlantic Regional Conference on Differential Equations

Abstract
Meir
DMS-9812541

This proposal requests support for the Southeastern-Atlantic Regional Conference on Differential Equations. This conference has a history dating back to 1981, and has an established record of providing new investigators and advanced graduate students a forum in which to exchange new ideas and discuss recent developments. In particular, the conference invites young investigators to present there work to an expert audience. The primary objective of this proposal is to secure support for advanced graduate students and recent PhDs to participate in this meeting.